Investigations of Lepton Interactions

9417854 Gidley This proposal is a renewal request for, "Investigations of Lepton Interactions". The renewal request combines the previous grant of the same name under Dr. Gidley with a grant for, "Precision Positronium Measurements with Low Energy Positrons" which was previously funded under the director of Dr. Paul Zitzewitz of the Dearborn campus of the University of Michigan. It is for studies of the properties of positronium atoms which are formed by a combination of an electron with a positron. It calls for measurements of positronium lifetimes, energy levels and the presence of violation of charge conjugation and parity. ***